Project-oriented Learning Groups for the Valley of Virginia Consortium Institutions

Science and technology faculty members from some of the Virginia Community Colleges will form small interdisciplinary Learning Groups with science faculty from James Madison University to work on team-oriented projects. Each project group will consist of three or four participants and a Group Leader. The emphasis will be on learning particular methods, techniques, and/or instrumentation use which can be utilized in undergraduate classes. Particular areas include: Protein Purification, DNA Probes, Elemental, Ion, and Crystalline Analysis, Polycrystalline Fabrics, Microprocessing Programming, and Plant Tissue and Scanning Electron Microscopy. Development of Instructional Materials using both case studies and computer-driven courseware authoring have been built into the program. Priority will be given to faculty from the Virginia Valley Consortium. but others will be considered on a space available basis.